Technology for All Americans -- Phase III

0000897
DUGGER

The Standards for Technological Literacy: Content Standards for the Study of Technology describe what students in the K-12 school system should understand about technology and how they should learn it.
Phase III is to develop standards for professional development of teachers, both inservice and preservice, standards for assessment and program standards. The project builds upon similar standards in othe disciplines.